Universality and Accident in Complexity: The Odyssean Quest of Murray Gell-Mann

"Universality & Accident in Complexity: The Odyssean Quest of Murray Gell-Mann" is a Symposium organized to honor the life works and memory of Nobel Prize Laureate, Dr. Murray Gell-Mann. The Symposium will bring together research leaders across diverse disciplines for intense discussions about the common mechanisms underpinning the dynamics of complex systems. Dr. Gell-Mann's legacy will be used as a conversation starter to form creative partnerships and inform cutting-edge research designed to support and further the creative thinking needed to find solutions to complex problems. Most importantly, this activity is a training opportunity for a new generation of junior researchers that will help accelerate the cross-disciplinary collaborative scientific exchanges needed to identify novel problems and solutions in the investigation of complex systems. As such, this project will facilitate the scientific and professional development of early-career researchers as well as inclusion of scientists from traditionally underrepresented groups. The symposium will be held at the Santa Fe Institute in Santa Fe, NM, in March 2020.